Information Resource for Computational Chemistry

Jan Labanowski is supported by a grant from the Theoretical and Computational Chemistry Program to enhance the development of an Information Resource for Computational Chemistry. This grant is made within the Information Infrastructure and Technical Applications (IITA) portion of the High Performance Computing and Communications (HPCC) strategic research area. This resource facilitates the communication and collaboration of research scientists in the area of computational chemistry throughout the world. The Computational Chemistry Listserver is an important research infrastructure tool for over 2250 subscribers in 50 countries. The catalytic support provided through this grant will enable Labanowski to carry out a number of innovative experiments which will result in a better moderated, fully-archived listserver. Software will be adapted or developed to handle the administration and supervision of the service in a distributed environment, and to provide improved access to the message archives. The Internet is having a tremendous impact on the field of computational chemisty. The sharing of new ideas in a global community is now possible on a daily interactive basis. Scientists can now engage in long distance electronic collaborations on a full time basis. The Computational Chemistry Listserver provides a vital communication infrastructure for the global community of computational chemists who wish to share theoretical and computational ideas, algorithms, and software.